Mechanical Properties of Laminated Copper-Based Composites Produced by Electrodeposition Techniques

9527624 Ebrahimi This project addresses two emerging scientific interests: the extraordinary strength of composites with interphase spacing in the submicron to nanoscale range and near-net- shape manufacturing of metal composites by electroforming. The objective is to utilize electrodeposition as a technique to produce ultra-fine laminated composites of copper-nickel and copper-silver, and to develop a mechanistic understanding of microstructure and mechanical property relationships in these materials. The study aims at understanding the effects of fineness of microstructure measured by laminate spacing OsO to grain size OdO, texture, and interfacial structure on yielding, strain hardening, and fracture behavior. The choice of the Cu-Ni and Cu-Ag systems allows investigation of the effects of lattice mismatch and stacking fault energy on the interfacial structure and mechanical properties of nanostructured multilayers. Results of extensive microstructural and mechanical characterization will be analyzed and used to develop mechanistic models for deformation and fracture of ultra-fine multilayered composites. %%% This study extends understanding of deformation and fracture mechanisms in ultra-fine, laminated composites. ***